The Development of Global Emissions Inventories

Computer model assessments of the atmospheric chemistry and air quality of the past, present, and future rely in part on inventories of emissions constructed on appropriate spatial and temporal scales and with appropriate chemical species. The production of such global inventories is the task of the Global Emissions Inventories Activity (GEIA) of the International Global Atmospheric Chemistry Project (IGAC). In support of this activity, the GEIA Management Committee proposes funding for the following: a two-year postdoctoral position for the organization and coordination of between five and ten project committees developing specific inventories, part-time supervision and support for the GEIA data management effort to make these inventories internally consistent widely available, and travel funds for US and developing world participants to attend three workshops at which the emissions inventories will be produced and discussed.